Mathematics Classroom Computers

This project is providing students with daily access to computer hardware along with mathematical software by putting computer work stations directly into two mathematics classrooms. Each classroom has twelve computers, enabling a class of thirty-six students to work on projects in groups of three. Courses taught in these computer classrooms are being centered around problem solving teams that use the computers to do mathematics and to write reports that combine text with graphical and numerical output. Students are becoming comfortable enough with the hardware and software so that they naturally and effortlessly use the computers as they think, discuss, and experiment. Daily access, rather than occasional trips to a lab, is allowing this to happen. The project is beginning in precalculus classes and then branching to intermediate algebra and calculus. With computers close at hand, faculty are fundamentally revising the way they teach mathematics.